Interaction of SV40 with MHC Class I Proteins

The goal of this proposal is to analyze the role of MHC class I proteins in the entry of simian virus 40 (SV40) into the cell and its targeting to appropriate intracellular compartments. MHC class I proteins were recently shown by this laboratory to be an essential component of the cell surface receptor for SV40. One major concern is to confirm preliminary findings which suggest that SV40 remains associated with MHC class I proteins during and after its entry in the cell. The functional significance of this association for virus entry and transport will be evaluated and the residues on the MHC class I proteins that might be important in these processes will be identified. Of particular interest is whether SV40 is transported to the endoplasmic reticulum (ER) in association with MHC class I proteins. This is important because MHC class I proteins acquire antigenic peptide fragments in the ER and because SV40 provides the only precedent for a targeting pathway from the plasma membrane that can access the ER. Thus, this study may enable the evaluation of the important but as yet unsubstantiated possibility that MHC class I proteins recycle to the ER. Whereas this laboratory has confirmed that SV40 accumulates in the ER prior to replication in the nucleus, it is not certain that transport to the ER is part of the pathway leading to productive infection. Nor is it certain whether or not virus entry leading to infection occurs by receptor-mediated endocytosis via coated pits. Experiments are proposed to address these issues. In addition, the rate at which MHC class I proteins are spontaneously internalized into control cells, the rate at which SV40 enters cells, and the effect of SV40 adsorbed to the cell surface on the rate of entry of MHC class I proteins will be measured. This will permit the determination of whether or not SV40 induces the internalization of the MHC class I proteins to gain entry into the cell, rather than entering passively in association with them. %%% These studies are likely to be of general significance for what they might reveal about the natural in vivo activities of the crucially important MHC class I proteins. These molecules are best known for the central roles they play in immunity. They are widely recognized for presenting endogenously synthesized antigenic peptide fragments for recognition by cytotoxic T lymphocytes (CTLs), thus playing an essential role in host cellular defense mechanisms. They also play a central role in the thymic selection of the T cell repertoire and the establishment of tolerance. Nevertheless, many important questions about their activities remain unanswered. The studies proposed here will provide important information about their recycling into cells and intracellular targeting. They will also provide important information about the little studied, but potentially significant, pathway of targeting from the cell surface to the ER.